Adaptive Beam Forming Super DARN

The Kodiak Super Dual Auroral Radar Network (SuperDARN) is an international project of scientific radars used for studies of the high-latitude auroral environment. The radar detects echoes from irregularities of the ionospheric plasma, which are generated in abundance in the high-latitude regions. These plasma irregularities also scatter the signals of other radars and interfere with their normal operation. Auroral clutter is a major problem in high-latitude regions. This project would lead to the installation of direct digital synthesizers on each element of the radar transmitters. This will enable the formation and transmission of a beam pattern that can be designed to suit either experimental aims or environmental conditions. The experiments will determine whether or not it is possible to mitigate the effect of the auroral plasma on radar reception, as well as enable the discrimination of signals different from the background ionospheric scatter.